Flaw Detection, Sizing and Location by Differential Gamma Scattering Spectrum Technique

This work concerns the application of a "differential gamma scattering technique" to the detection of voids, cracks and flaws in materials without subsequent deterioration of the material (i.e., non-destructive testing). The project will involve the determination of the scientific feasibility of the technique, and validation of the fundamental engineering design requirements needed for the development of commercial systems.